Short Courses for Secondary School Teachers

This is a program of 20 one-day short courses, each enrolling 25 teachers, over a three-year period, taught by leading research scientists at the State University of New York at Stony Brook. Participants will explore advances in current scientific research, tour research facilities, learn how to present specific advanced topics to students, and be part of a university - school network for the sharing of curriculum ideas. Cost-sharing by SUNY - Stony Brook is equal to 98% of the NSF award.